Conference: Summer School in Homotopy Colimits

The Summer School on Homotopy Colimits will be held at the University of Regina, Canada on June 22-26, 2026. It is aimed at graduate students and early career researchers to learn about homotopy (co)limits, a fundamental tool in homotopy theory. Having a workshop focused on this unifying technical tool will foster connections between different research groups in homotopy theory and adjacent areas. The summer school will consist of five mini-courses, which will be taught by experts in the field (Alejandro Adem, Anna Marie Bohmann, Brenda Johnson, Chris Kapulkin, and Inna Zakharevich).

Homotopy limits and colimits are constructions that are broadly used in all areas of homotopy theory. This summer school will expose participants to the tools for working with homotopy (co)limits, specifically in the context of model categories and infinity categories. Additionally, the mini-courses will also provide participants with perspectives on how homotopy (co)limits are used in various branches of algebraic topology, in particular, equivariant homotopy theory, calculus of functors, and classifying spaces of groups. More information is available on the website: https://sites.google.com/view/reginahomotopy.